The Social Saving of the Electric Telegraph in 1890

This award is funded under the Research in Undergraduate Institutions Program. The purpose of this research is to measure the economic importance of the introduction of the electric telegraph in the United States the end of the of the last century. Estimates will be developed of the costs to society at that time of not having had available the technology of the telegraph for long distance communication. An estimate of the costs to society will be based on the cost of replacing the service by some other existing communication technology, like expanding the mail service at that time, together with the increased costs to the economic sectors purchasing communication services. This research is important because it looks at the economic development implications of the adoption of new communications technology. Innovation in communications continues at a rapid pace to this day, and the results of this study should provide useful insights into the role of communication technology in economic growth and development process.